Transfer of Value in Simultaneous Discriminations

Zentall, Thomas NSF Grant Proposal IBN 9414589 Nontechnical Summary When two stimuli are presented at the same time and responses to one are rewarded (S+) and those to the other are not (S-), such a task is called a simultaneous discrimination. The PI has recently found (Zentall & Sherburne, 1994) that when animals learn such a task, the S- actually acquires some value from being presented with the S+ (relative to the appropriate controls). The purpose of the proposed research is primarily to determine the learning mechanisms by which such transfer of value takes place. First, it is possible that the S- becomes a signal for the presence of the S+. Second, it may be that the sight of the S- (followed by responding to the S+) followed by reward, results in a direct Pavlovian association between the S- and reward. Finally, it may be that presenting two stimuli at the same time results in an association between them (through the so- called " principle of contiguity"). A second purpose of the proposed research is to examine the involvement of this value-transfer effect in other learning phenomena. For example, there is evidence that overtraining on a discrimination can speed up the reversal of that discrimination (i.e., the overtraining reversal effect). The PI proposes to show that overtraining allows additional value to transfer from the S+ to the S-. In addition, value transfer may be involved in transitive inference effects that have been reported in animals. If animals have been trained on four simultaneous discriminations, symbolized as A+B-, B+C-, C+D-, D+E-, they appear to order those stimuli from best to worst (i.e., A>B>C>D>E) as evidenced, in particular, by the strong preference that they show for B over D on test trials. Although the principle of value transfer appears in simultaneous discrimination learning in animals, there appear to be important parallel effects in certain human social perceptions. For example, there is evidence that the presentation of an attractive female together with an automobile enhances the perceived value of the automobile. Similarly, one's self regard may be enhanced by living in a city in which the professional sports team is successful. Thus this research might shed light on puzzling associative phenomena that occur in people.